Collaborative Research: Implementing Low-power, Autonomous Observing Systems to Improve the Measurement and Understanding of Antarctic Precipitation

Accurately measuring precipitation in Antarctica is important for purposes such as calculating Antarctica’s mass balance and contribution to global sea level rise, interpreting ice core records, and validating model- and satellite-based precipitation estimates. There is a critical need for reliable, autonomous, long-term measurements of Antarctic precipitation in order to better understand its variability in space in time. Such records over time are essentially absent from the continent, despite their importance. This project will deploy and test instrumentation to measure and record rates of snowfall and blowing snow in Antarctica.

Project goals are based on installation of four low-power, autonomous Antarctic precipitation systems (APS) co-located at automatic weather station (AWS) sites in the Ross Island region of Antarctica. The APSs are designed with an integrated sensor approach to provide multiple types of observations of snow accumulation types at the test sites. The APSs are designed to construct an accurate timeline of snow accumulation, and to distinguish the water equivalent of fallen precipitation from surface blowing (lofted) snow, a prime confounding factor. The standard suite of instruments to be deployed includes: precipitation gauge with double Alter windshield, laser disdrometer, laser snow height sensor, optical precipitation detector, anemometer at gauge height, and a visible /infrared webcam. These instruments have previously been shown to work well in cold regions applications.